Porphyrin Sponges: Programmable Lattice Clathrates

This award is made in the Materials Chemistry and Chemical Processing Initiative in support of the collaborative research of Professors Strouse and Anet at the University of California at Los Angeles. Joint funding is provided by the Divisions of Chemistry and Materials Research. The thrust of the research is the synthesis, characterization and applications of programmable lattice clathrates prepared from metalloporphyrins. Crystalline metallotetraphenylporphyrin complexes represent a class of lattice clathrates in which the axial coordination sites of the porphyrin metal atoms are directed into hydrophobic channels. This feature provides a simple means for programming the clathrate lattice which will be the basis for a new strategy for molecular recognition, to exercise control over the metal atom environment, or to manipulate the structure of the porphyrin lattice. Applications will be sought which will take advantage of the rich chemistry of metalloporphyrins, the accessibility and selectivity provided by the channel structure, and the rigidity of the clathrate lattice. Materials characterization and synthetic modification studies will be directed toward applications which range from chemical separations to energy conversion. Parallel chemical studies and computational analyses will be designed to provide a more fundamental understanding of the dynamics and energetics of clathrate binding. The database afforded by the combined investigations will allow efficient exploitation of these materials in a broad range of scientific and technological applications.